RIA: The Effect of Gravel Content on Liquefaction of Gravelly Soil

The object of this proposal is to investigate the effect of gravel-sized particles on the liquefaction resistance of gravelly-sand specimens. The goal is to show quantitatively how the liquefaction potential of sand is effected by inclusion of gravel particles. Since sand is readily accepted as liquefiable bu most engineers, the liquefaction potential of several gravelly soils will be compared to that of sand. Case histories and dynamic laboratory testing will be used to show that gravelly soil is liquefiable.